Enhancing NMR Instructional and Research Capabilities for Undergraduates

The modern Fourier transform nuclear magnetic resonance spectrometer has become one of the most versatile pieces of instrumentation available to the practicing chemist. The availability of such instrumentation for hands-on use os critical to education and training of the undergraduate student. The acquisition of FT-NMR provides our student with the desired exposure to current technology. The instrument is actively incorporated in the sophomore organic course, which has been recently converted to the microscale program. At this level, routine proton and carbon-13 data are emphasized. A more detailed discussion of theory and application of NMR occurs at the junior level during the year long courses in physical chemistry and in our spectroscopy-instrumental analysis course. During these courses and our courses in biochemistry, advanced organic chemistry, and advanced inorganic chemistry the multinuclear, variable temperature, and two dimensional capabilities are explored. The students have first hand opportunity to a variety of chemical problems through the use of the NMR spectrometer. The institution is providing an amount equal to about 125% of the NSF grant toward the purchase of the equipment.